Integration of an Advanced Optical Spectroscopy Laboratory into the Chemistry Curriculum

This project provides for the purchase of equipment for a modular laser-based spectroscopy and kinetics laboratory to be used in the teaching of physical, instrumental, analytical, and biochemistry courses. The equipment includes a diode laser and a nitrogen-laser pumped dye lasers, monochromators, and detection electronics (both PMT and CCD). With this equipment, students in instrumental and physical chemistry courses will be able to easily and rapidly construct apparatus for the measurement of Raman spectra, fluorescence spectra (laser and lamp excitation), interferometry, two-photon spectroscopy, and rapid kinetics (flash photolysis). The equipment is designed for maximum versatility in experimental design and a minimum of instructor intervention. Two configurations (Raman and fluorescence spectrometers) will be used throughout the curriculum as state-of-the-art instructional instruments. The equipment will also be available for undergraduate research projects.